Publication of the Twenty-Second Symposium (International) on Combustion

The biennial publication of the proceedings of the International Symposium on Combustion is one of the most valuable ongoing contributions to the scientific literature. Support (to the extent of $6,000) is a fine investment to make in connection with the 1988 Symposium. A 12-month grant is recommended from FY88 funds in the amount of $6,000.